I-Corps: From Nanofabrication to Commercial Production of Solar Cells

This project aims to realize the proof of concept and then the demonstration of product on a new design of solar cell. The technology used for this project is based upon the use of tunable organic bi-layer photovoltaic (OPV) nanoparticles as a low-cost means to convert photons from the sun to useable electrons. The proposed work involves fabrication of aligned zinc oxide (ZnO) nanorods, decoration of the nanorods with functional OPV nanoparticles, testing of solar cell performance, and the demonstration of products. The new design will align functional bilayer nanoparticles with vertically aligned ZnO nanorods to realize efficient transport of carriers (electrons and holes) that are generated through photon-electron conversion.

Sustainable energy supply is an issue impacting day-to-day life, the environment and many other areas. If successfully completed, this project may lead to sustainable and more economic energy supply through solar power. Zinc oxide nanostructures have demonstrated high electrical conductivity, mechanical strength and long-term stability. Both the OPV nanoparticle and the ZnO nanorod offer low-cost scalability utilizing low-cost materials and inexpensive widely used processing techniques.